AMP: Greater Philadelphia Region Alliance for Minority Participation Phase II Project

HRD-9900892
Hawkins-Breaux

Drexel University, is a representative of the Greater Philadelphia Region Louis Stokes Alliance for Minority Participation (Philadelphia LSAMP), seeks continued funding as an AMP Phase II project, to intensify its on-going efforts to substantially increase the quantity and quality of African American, Hispanic and Native Americans students receiving baccalaureate degrees in science, mathematics, engineering and technology (SMET), and subsequently, entering graduate school to attain doctoral degrees. Philadelphia AMP represents a diverse alliance of public and private, 2- and 4-year, research and non-research, Historically Black Colleges and Universities (HBCUs) and majority institutions. A salient feature of this proposal is the fundamental manner in which the proposed AMP Phase II project rests on a solid foundation of collaboration, cooperation and concerted efforts focused on minority student achievement under the current Philadelphia AMP.